Spectroscopic Studies of Supported Iron Carbidocarbonyl Clusters (Engineering)

IR and SS-NMR studies of supported iron carbidocarbonyl clusters will be conducted. This research combines expertise developed in the field of supported metal catalyst chemistry with that of organometallic chemistry and homogeneous catalysis. Borrowing from surface chemistry techniques, metal clusters will be anchored to supports to provide them with an environment more similar to that of a heterogeneous catalyst is usually found. In this environment, the metal cluster will be subjected to thermal and chemical treatments while monitoring the transformations that the ligands and the metal framework undergo. An effort will be made to probe the molecular chemistry of the supported cluster system and compare the observations with the known solution chemistry of the unsupported cluster and the less-well-defined surface chemistry of related adsorbate-metal surface systems. The studies will provide an understanding of the structure of the cluster systems throughout these interactions, giving the potential to develop a fundamental understanding of a wide range of metal-organic interactions that may provide invaluable clues concerning similar interactions on metal surfaces. Interactive activities include a workshop for women undergraduates entitled, "Graduate Education in Chemical Engineering." This activity will help encourage young women to consider careers in scientific research. In addition, a graduate course on topics in catalysis will be taught. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.